Research at Ultralow Temperature

They will perform experiments in three areas of superfluid physics. They will detect a macroscopic quantum interference effect in (3)Helium using the D.C. Josephson effect. A second project will involve measurements of the quantum of circulation in (3)Helium. Finally, they will study the properties of the superfluid (3)Helium film.